Cirdcadian Clock-Regulated Transcription in Arabidopsis Thaliana

This proposal addresses a novel form of gene regulation in eukaryotes by asking how a circadian clock regulates the transcription of specific plant genes. The study of clock- regulated transcription will provide an important insight into molecular genetic studies. Transcription of the three Arabidopsis Cab genes is differentially regulated by a circadian clock. The basis for this difference will be investigated by analyzing the cis- and trans-acting factors that mediate the circadian response. This will entail detailed in vitro analysis of specific DNA-protein interactions using nuclear protein extracts prepared from different time-points during the cycle. The in vivo relevance of these interactions will be assessed by analysis of sites-specific constructs in transgenic plants. In addition, novel circadian- regulated marker genes will be identified and characterized by differential and subtractive hybridization. %%% Knowledge of how transcription is regulated by cellular clocks will provide insight into a novel form of gene regulation in plants and will, perhaps, provide information which can be extrapolated to other organisms.